Symposium on Application of Multiple Scattering Theory to Materials Science, Boston, Massachusetts, December 2-6, 1991

An award is made to provide partial support for a Materials Research Society Symposium at the annual meeting of the society in Boston, MA, on December 2-6, 1991. The topic of the symposium is the Application of Multiple Scattering Theory to Materials Science. Multiple scattering theory is a technique for treating the propagation of waves among scattering centers. It is a powerful technique and is used in a wide range of fields that are relevant to materials science. Recent developments have advanced the technique to the point where more realistic calculations are possible. The symposium will bring together major researchers in the field to discuss these advances and to present results of calculations of interest to the materials research community.